Support for Student Travel to 55th International Conference on Electron Ion and Photon Beam Technology and Nanofabrication,to be held, May 31-June 3,2011.

Support for student travel to 55th International Conference on Electron Ion
and Photon Beam Technology and Nanofabrication, Proposal 1137067

This project, funded at $10,000, will help support the travel of 20 graduate students, from
universities around the USA, to attend the 55 th International Conference on Electron, Ion
and Photon Beam Technology and Nanofabrication, 2011, to be held at the J. W. Marriott
Resort, Las Vegas, Nevada, May 31 to June 3, 2011. In the fields of nanofabrication,
electron and ion-beam lithographies, photon and imprint lithographies, particle-beam
optics, and forefront applications of nanofabrication, this conference is preeminent. The
requested travel aid will enable students to present their research to a high level
international scientific community. They will observe how scientists and engineers
exchange innovative ideas and other information at conferences, and they’ll hear firsthand
presentations of up-to-date research results in nanotechnology.

Learning how a technical conference serves as a venue for conveying information to
other is an important element of a student’s education. Also important is leaning how to
present, in a cogent and understandable way, the results of one’s research. The requested
support will help to accomplish these ends. At the conference, students will make
important personal contacts and learn of employment opportunities. At a special breakfast
for the funded students, the conference organizers will discuss optimal techniques for
presenting scientific information and how the conference program is put together.